Science Upgrade for R/V Knorr

This project will provide support for shipboard scientific support equipment for the research vessel KNORR, operated by the Woods Hole Oceanographic Institution, and dedicated to use in support of ocean science research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. This Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, Robertson P. Dinsmore is fully qualified to direct this project having had considerable experience in overseeing similar activities. The R/V KNORR is undergoing a major overhaul/refit/upgrade including lengthening by 34 feet, replacement and modernization of the propulsion system and refurbishment of interior services and surfaces. This effort is being funded by the Navy through the Office of Naval Research. The NSF contribution will complete the project by supplying funds for the scientific upgrade of the R/V KNORR. This includes modifications to the existing ship controls to allow precise dynamic positioning, installation of a fully integrated winch readout system, a modern workboat which will also serve as a rescue boat, two new cranes and a hydrographic boom for handling scientific gear, the refurbishment of the ship's hydrographic winch, installation of modern echo sounding systems and an uninterruptible power supply for scientific instruments.